"Complex Manifolds with special Structures"

Complex Manifolds with special Structures, Abstract

author: Zhuang-dan Guan

My research has been largely in the area of complex manifolds and have a
number of problems to work on. Recently, I am working on three major
directions: (1) Classification of compact hyperkahler manifolds, (2)
Stability and extremal metrics, (3) Classification of Complex homogeneous
spaces. Our research was highly concentrated on these directions for the last
4 to 5 years. We expect to work on extremal metrics and hyperkahler manifolds
for some other years since many breakthroughs are happenning in these
directions. The picture for extremal metrics is becoming clear after many
years of research. It can be described by the geodesic stability principles.
The uniqueness comes from the convex property of the modified Mabuchi
functional on Mabuchi moduli space of Kahler metrics and the existence of
geodesics between Kahler metrics [GM4]. The existence should be the same as
the geodesic stability [GM7]. I already test these principles by both the
examples in my dissertation and those in [GM7]. For the toric manifolds, we
already proved the uniqueness and that existence implies the geodesic
stability. We are trying to solve the final part of the geodesic stability
principles that geodesic stable implies existence for toric manifolds. We also
test the geodesic stability for many toric manifolds, e. g., the manifold
obtained by blowing up two points in a 2 dimensional complex projective space.
This will eventually solve the historical problem of existing Kahler-Einstein
metrics and extremal metrics. The best condidates of Hodge diamonds for the
complex 4 dimensional compact hyperkahler manifolds are described by the
possible pairs of the second and third Betti numbers (5,36),(7,8),(8,0),(23,0)
([GHS4]). Now it is the time to work on classification with many tools as
Lagrangian fibration, Rozansky-Witten invariants, geometric elliptic genera. A
sandwich inequality of Rozansky-Witten invariants suggests further results for
higher dimensional case. The classification of compact complex homogeneous
spaces is reduced to the better understood manifolds as parallelizable
manifolds, reductive spaces and primary spaces in [GH7]. We will try to
understand more about the higher step primary spaces in the future.

The research of Kahler-Einstein metric has been pioneered by many well-known
mathematicians including several Fields Medal receivers. It turns out that
there are many similarity between this field and the Hitchin-Kobayashi
correspondence in the holomorphic vector bundles on compact Kahler manifolds.
Both fields are closed related to Physics Science, e.g., Einstein equation,
general relativity, Yang-Mills, Mirror Symmetry, Calabi-Yau, etc. We will
write up a textbook in Kahler geometry describe a clear picture on both of
these fields. Hyperkahler manifolds and homogeneous manifolds are some
important manifolds which have some physics origin as that of Calabi-Yau
manifolds and are unsolved classical topics in complex geometry. The pictures
for these fields become clearer recently.